Introduction to Electronics in Modern Physics Module

This project will introduce the use of digital storage oscilloscopes in undergraduate laboratories, for the recording, storing, and processing of data. The new equipment can be used with a variety of experiments. Its use will help train students in new techniques, and allow the introduction of new experiments. NSF support is recommended.